Three-Dimensional Displays for Cell Microscopy from a Number of Two-Dimensional Displays: Transforming Depth into Time

This is a SBIR Phase I project in the topic area of biological instrumentation. Princeton X-Ray Laser, Inc. will develop a technology that allows a 3D display of 2D images. Such technology will be useful as an attachment to high power microscopes used in cell biology research. Medical imaging is a long-term application potential, as well.